Investigation of the Use of Three-Dimensional Computer Modeling on Construction Sites

This expedited award for novel research is to investigate the use of three-dimensional computer modeling on construction sites. The project is to conduct fundamental research in the use of three- dimensional modeling as a means of communication and construction process simulation. It will test the differences in constructability reviews, quality of design, construction schedules, construction planning, and construction progress reporting when accomplished using a three-dimensional model versus traditional two-dimensional models. In addition, it will investigate techniques for using three- dimensional models to instruct and train construction supervisors on site to improve productivity as a consequence of the learning curve effect. The research program is novel, in that it combines the research strengths of the University with the best available computer technology of the construction industry in an intimate working relationship. This form of collaborative research is unique, but should become the standard approach for future work in computer- integrated construction. The research program is timely, in that the Columbia Center for Engineering and Physical Science Research provides a unique experimental laboratory for collaboration between University researchers and design and construction firms in the Metropolitan area. The Center is currently under design and will commence construction in 1988. Finally, the research program is not merely a general academic study of computer technology but rather identifies scientific hypotheses that can be experimentally verified or refuted. This proposal covers the detailed design of the experiments for empirical confirmation during the construction of the actual project. The results of the study will provide definitive conclusions that can be immediately applied to advance the technology and productivity of the U.S. construction industry.